Eng Res Equip Grant: A Ruby Laser Holographic Camera for: 1Utilization of Micro Bubbles as Pressure Sensors in Water Jets 2. Turbulent Boundary Layer Structures & Sediment Trans

Funding is provided for the acquisition of a pulsed ruby laser holographic camera and the necessary components for image reconstruction. The system will be used in projects that require determination of the exact size and location of microscopic particles and bubbles in a liquid medium. In the first project microscopic bubbles will be used as pressure sensors in order to measure the free stream pressure fluctuations in water jets. The second project will focus on the role of turbulent boundary layer vortex structures in the entrainment of solid particles for a sand bed and the onset of sediment transport.